Purchase of a Parallel Super Computer

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at the Pennsylvania State University in the purchase of a parallel computational facility using IBM SP2. This equipment will enhance research in a number of areas including the following: (a) Quantum Chemistry, (b) Chemical Reactions Induced by keV Particle Bombardment , (c) Solvation and Solvent Effects on Chemical Reaction, (d) Interaction of Fusion Peptides and Fusion Inhibiting Peptides with Model Lipid Bilayers, and (e) Simulations of Molecular Liquids and Absorbed Phases. A workstation network of fast, modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a "computer network" also serves as a development environment for new theoretical codes and algorithms, provides state-of-the-art graphics and visualization facilities and supports research in state-of-the-art applications of parallel processing.